Wrinkling in Sheet Metal Forming

The research will address three types of wrinkling problems in sheet metal forming: (1) wrinkling of metal sheets in finite stretching and unequal edge constraints; (2) wrinkling of unevenly stretched metal sheets; and (3) wrinkling of partially stretched metal sheets. Each of these three problems can be divided into two parts: prewrinkling finite deformation and bifurcation analysis. By taking a unified approach to the problem of wrinkling, a scientific approach to preventing wrinkling during forming will be developed.